Implementing Calculus Reform: Conferences, Classroom Testing and Dissemination

A forum is established for the dissemination and classroom testing of innovative ideas, pedagogy, and technological advances in teaching calculus. Classroom testing is taking place on campuses of California Community Colleges and State Universities under the auspices of the California Calculus Consortium. Faculty are introduced to innovative approaches via a summer workshop and these approaches are reinforced through follow-up activities during the academic year.